Tight Frames of Rational Splines and Application to CAD/CAM and Computer Graphics

Cardinal splines (i.e. splines with equally-spaced knots) provide a
canonical example for demonstrating the mathematical structure of
multiresolution analysis (MRA), which is a very powerful tool for the
construction of orthogonal, semi-orthogonal, and bi-orthogonal
wavelets. However, for practical applications, splines with arbitrary
knots are often needed; and although the multi-level (ML) structure of
spline subspaces is still valid, the Fourier approach to the study of
cardinal splines and their corresponding wavelets no longer applies to
this more general study. In addition, even for the cardinal setting,
orthogonal and semi-orthogonal splines must be replaced by tight affine
(or wavelet) frames when compact support (or finite time-duration) is
needed for both spline-wavelet analysis and spline-wavelet synthesis.
Furthermore, for CAD/CAM applications, there is also the need of
rational B-splines (or NURBS) for precise representation of various
geometric objects such as conic sections.

This proposal is based on our recent results on tight frames of
cardinal splines and on our newly developed complete ML structure of
NURBS in terms of their weights. We propose to introduce non-stationary
time-domain techniques to build a unified mathematical foundation of
tight affine frames of compactly supported splines with arbitrary
knots, and more generally, of NURBS. This will be followed by
development of efficient algorithms and computational schemes
associated with these new basic functions, which will be used as
analysis and synthesis tools for CAD/CAM and computer graphics
applications. We also propose to develop software libraries of these
analysis and design tools that will be fully compatible with the
industrial standards such as IGES, STEP, and PHIGS, for the CAD/CAM/CAE
industries.